REU: Collaborative Research: The Role of the Alien Myrica faya Ait in Altering Primary Succession in Hawaii Volcanoes National Park

The exotic nitrogen-fixing tree Myrica faya invades young volcanic sites in Hawaii Volcanoes National Park. Growth of native plants in these sites is strongly limited by low nitrogen availability, and it has been demonstrated that invasion by Myrica substantially alters both nitrogen inputs and nitrogen availability in areas where it is abundant. It is believed that this invasion will alter population dynamics, community structure, and ecosystem-level nutrient cycling in native ecosystems of Hawaii Volcanoes National Park. The reproductive biology of Myrica makes it a successful invader, and its unique (to that area) physiology changes system-level productivity and nutrient cycling. Analyses of biological invasions such as this one offer the opportunity to determine how individual species can regulate ecosystem dynamics, and integrate the approaches of physiological, population, community, and ecosystem-level ecology in an ecosystem study. The research team for this project has an excellent track record for collaborative work and productivity. Facilities for the work at both Stanford and the University of Hawaii are quite good in cooperation by the National Park Service and by NASA are first rate.